Patterns of Responding Within Experimental Sessions

IBN 94-03719 McSweeney Abstract Responding is not constant within experimental sessions when animals respond on operant-conditioning procedures. Instead, responding often begins slowly, increases to a peak and then decreases throughout the rest of the session. Dr. McSweeney will try to determine why these changes occur. In particular, her experiments are designed to separate the contribution of factors related to reinforcement, such as arousal followed by satiation, from the contribution of central factors, such as the focusing and waning of attention. These experiments are important for both theory and method for two reasons. (1) Many experiments in operant psychology are not designed so that their data can be interpreted if such within-session changes in responding occur. (2) Rate of responding averaged over the session is one of the primary dependent variables in operant psychology. Finding systematic changes in responding within sessions suggests that this measure ignores important changes in behavior at a more detailed level. Improving theory and methods in operant psychology has important practical benefits. Operant techniques are used as methods for determining the effects of physiological variables (for example, in the pharmaceutical industry) and as the basis for some forms of therapy for human behavioral problems.